Distributed Tree Infrastructure for Peer-to-Peer Systems

Peer-to-peer networks are distributed systems without any central
authority that are used for efficient management and location of
shared resources. Unlike traditional client-server architectures,
which concentrate load on a small number of server machines,
peer-to-peer systems provide inherent scalability by distributing the
cost of maintaining the system across its participants. At the same
time, peer-to-peer systems create new challenges for efficient and
robust implementation, as they are built from untrusted and unreliable
components and can provide survivability only as an emergent property
of the system as a whole.

The project studies applications of large-scale distributed data
structures to peer-to-peer systems, with an emphasis on efficiency,
scalability, fault-tolerance, and recovery. Major goals of the
project include (a) design and implementation of mechanisms for
optimal trade-offs between use of the network and use of local
storage; (b) design and implementation of mechanisms for very fast
construction of large-scale distributed data structures; and (c) use
of data structures providing ``range queries,'' in which the data
structure finds nearest matches to a desired object instead of just
exact matches, to support versioning, replication, and approximate
matching.